Computer Enhancement of Biology Laboratories

In this project, a multipurpose computer is being used to complement traditional laboratory and field investigations. Students carry out a variety of simulations, use self-guided multimedia learning materials to learn laboratory- and field- related concepts, and analyze data. They also manipulate and quantitatively analyze images captured with microscope equipment and a new gel scanner. The project allows faculty and students to create multimedia teaching modules from original materials. Photographs, video, and sounds are being digitized and edited. With presentation software, they are incorporated into multimedia modules. These interactive modules are being made available in the new laboratory, in existing laboratories, and over the university network for students to study at their own pace. The new equipment includes the following: (1) a computer laboratory with five Macintosh computers, five PC-compatible computers, five laserdisc players, presentation and simulation software, and several laserdiscs; (2) a Macintosh graphics development station with a capture board, video tape recorder, video camera and software; and (3) a video scanner and light boxes for electrophoresis and chromatography gels. The new laboratory directly affects at least 360 science majors in the College of Science and Engineering, including all entering freshmen biology majors, all sophomore biochemistry and chemistry majors, and 130 upper-division biology students.